EIU's Uniform Campus-Wide Area Network Connection to NSFNET

Eastern Illiniois University has several researchers who would benefit from access to supercomputers and access to other researchers connected to the NSFNET. The campus will be connected directly to the University of Illinois under the auspices of the Computing Services Office with a 56,000 bits per second communication link. The University of Illinois will provide further Internet access through their connection to the NSFNET Backbone network. They will also provide the necessary information services and training. This project will improve research and instruction effectiveness at Eastern Illinois University by enhancing and expanding desktop access to all Internet facilities including the supercomputing facilities at the National Center for Supercomputing Apllications and the Statewide Library Circulation System.